Heavy Flavor Physics at CLEO and BTeV

This proposal requests support for the research program of the Wayne State group which is involved in the CLEO experiment at the CESR facility at Cornell University and in the BTeV experiment currently planned for future running at the Fermilab Tevatron collider. This group participated actively in the physics analysis of CLEO II (the PI was co-spokesman for a term), made major contributions to the interaction region (IR) for the upgrade of CESR and CLEO, and helped with the new RICH particle identification detector. The group is currently working on interesting physics results with CLEO II data including D-mixing, the D-star width, rare semileptonic DS decays, the mass of the tau neutrino, B to tau nu, and accelerator physics.
For BTeV the group plans to bring its expertise in the construction of low mass and high precision machine-detector interfaces to this project. The physics interests include rare charm decays where no work beyond very promising early calculations have thus far been done. The proposed BTeV detector looks to be very sensitive to D-mixing. BTeV will become the group's main physics interest after the completion of CLEO.